Variable-Confined Logics in Finite-Model Theory

Finite-model theory is the study of first-order logic and its extensions on classes of finite structures. In recent years, several extensions of first-order logic have been investigated in the context of finite-model theory. Fixpoint logic and the finite-variable infinitary logic IL have turned out to be of particular importance. The study of fixpoint logic generated interactions with both database theory and complexity theory, while the finite-variable infinitary logic IL proved to be a useful tool for analyzing the expressive power of fixpoint logic. In addition to being a proper extension of fixpoint logic, IL enjoys a game- theoretic characterization and possesses interesting structural properties, such as the 0-1 law. This project studies variable-confined logics, that is, logics with a fixed finite number of variables. This is motivated by the fact that the number of variables is considered a logical resource in descriptive complexity theory and has computational implications also in the evaluation of database queries and in program verification. Various aspects of variable-confined first-order, fixpoint, and infinitary logics, ranging from expressive power, algorithms for deciding truth and validity, and asymptotic probabilities, are studied.***